Travel: NSF Student Travel Grant for 2025 International Conference on emerging Networking EXperiments and Technologies (ACM CoNEXT)

This award seeks to fund US-based students to attend ACM CoNEXT 2025 conference, held in Hong Kong on December 1 - 4, 2025. ACM CoNEXT 2025 is a premier annual forum that attracts high-quality, forward-looking research contributions and provides a vibrant forum for technical and professional exchanges. CoNEXT will expose selected students to cutting-edge developments in the field and enable interactions with world-leading researchers. Students will gain feedback on their ongoing work, broaden their academic perspectives, and build lasting professional connections.

This effort supports students from US universities to attend ACM CoNEXT 2025 conference in person. Students will have the opportunity to present their work and be exposed to state-of-the-art developments in the field. They will also have the opportunity to interact with peers from institutions worldwide, meet with senior researchers, and participate in discussions that are likely to shape the future of the field.